A Deep Multicolor Survey and the Evolution of Quasars

AST 95-29324 Quasars, as the most distant known objects in the universe, probe the universe back to the time when it was less that 10% of its present age. However, there remain many questions about the nature of quasar evolution. To resolve some of these questions, a new, deep multicolor survey for quasars and AGNs has been undertaken with a large format CCD and the KPNO 4-m telescope. Photometrically calibrated images in six filters ranging from 034 to 0.86 um and covering 0.83 sq. deg down to B = 23.8 have been obtained and reduced. A catalog of over 21,000 stellar objects with magnitudes or upper limits and error estimates in all the filters has been assembled. Some follow-up spectroscopy has also been obtained for selected objects. In this program, the data analysis will be completed and the data published and made available to the astronomical community. In addition, further spectroscopic observations will be made to determine the properties and evolution of both high redshift quasars and quasars/AGNs near redshift 2, where a determination of the luminosity function will provide significant constraints on models of quasar evolution. Infrared observations will be used to investigate the possible evolution of the continuum and emission-line spectra of high-redshift quasars. The nature and abundances of the compact, narrow emission-line galaxies will be studied to determine their chemical history and evolutionary state.